PPD: Project to Publish and Disseminate Booklets on Careersin Science, Math, and Engineering for Students with Disabilities

The American Association for the Advancement of Science (AAAS) is publishing and disseminating two booklets, Find Your Future and You're in Charge, for precollege and undergraduate students with disabilities to motivate them towards education and careers in science and engineering. The booklets include a rationale for choosing a science- based career and encouragement to seek out postsecondary institutions that offer science and engineering curricula. The booklets include much practical advice on admissions, orientation, establishing support services, interaction with faculty, asssistive technology, and pre-career science work experiences. The booklets were developed in 1987-89 as part of an NSF-funded research project conducted by American Institutes of Research (AIR) and AAAS on critical factors contributing to entry and advancement by persons with disabilities in science, mathematics, and engineering fields. In the course of the study, 280 working scientists and engineers and students with disabilities were interviewed. The content of the booklets was developed from these interviews. AAAS will design and publish the booklets in an attractive format and will do some editing so that the legislative information and language meet 1992 standards. Announcements about the availability of the booklets will be placed in both the science education and disability press and announced in electronic networks. Single copies will be distributed with a cover letter/return sheet to obtain feedback. Multiple copies will be distributed at appropriate meetings.